Study of Probabilistic Combinatorial Optimization Problems

This project deals with extending some general and classic deterministic combinatorial optimization problems to include probabilistic elements. Specifically, the extensions will address the shortest path, assignment, minimum spanning tree, traveling salesman, and vehicle routing problems. The study will explore solution characteristics and procedures. Amedes Odini is an accomplished researcher in transportation networks. MIT provides an excellent environment for conducted such work: The results are important and promising. An award for a one-year period is highly recommended.